Doctoral Dissertation Research in Political Science: How Elite Polarization Constrains Leader Rhetoric

My dissertation seeks to contribute to our understanding of how citizens make decisions to engage with or to ignore partisan political events and the implications of that behavior on political actors and institutions- specifically, the Presidency of the United States. During times of extreme partisanship and disagreement between Democrats and Republicans, certain types of partisans may inoculate themselves against political rhetoric or events that challenge existing political beliefs. Partisans expect their party to perform better, to produce high-quality candidates, and to take appropriate issue stands (e.g., Gerber & Huber 2010; Taber and Lodge 2006; Gerber, Huber, & Washington 2010). When partisanship is a more prominent element of politics- during times of party polarization, for example- individuals tend to engage with their partisan identity more deeply and to use it to evaluate the political world around them.

Reliance on partisan identity, however, carries a potentially major liability: it predisposes citizens to a distorted view of the political world. In the heat of partisan rhetoric and political campaigns, partisan identities become more salient, leading citizens to hold situational self-conceptions as Republicans, Democrats, or Independents, and to think about politics from an "us" verses "them" perspective. To preserve expectations and to protect their partisan identities, people often engage in selective exposure and motivated reasoning, the tendency to choose to expose themselves to information that simply validates their partisan identities and to react to new information in ways that only supports previous beliefs. When confronted with uncongenial information, they tend to ignore, to discount, or to counter-argue it (Taber and Lodge 2006). I hypothesize that this may cause problems for the President and Presidential communication since the President is often viewed as both a party leader and a representative of the nation as a whole. Using survey and original experimental data, I will show that an increasingly partisan environment tends to (1) prevent Presidents from gaining access to and affecting an audience outside of like-minded partisans and ideologues; (2) increase the likelihood that individuals rely on partisanship rather than update their beliefs when confronted with new information; and (3) provide added incentives to avoid rhetoric that challenges existing political attitudes. The implications of these findings are that the President and his rhetoric may have limited influence, only having an intensifying effect for like-minded partisans while having little or no effect on the other party.

This project seeks to investigate the impacts of party polarization, partisanship, selective exposure, and motivated reasoning. On a broader level, however, it is asking the value we place on a free-flowing, open marketplace of ideas in the United States and the functionality of a political system with highly polarized parties. Given the relationship between elite polarization, salience of partisanship, and biased reasoning, there may be reason to believe that meaningful political debate that transcends party lines may be in decline. It is concerning if exposure to political ideas, policies, and office holders only occurs among those who already agree with them. The President, one of only two nationally elected officials, may be becoming less effective as a uniting leader as a result of this partisan shift. Rather than having the option of pivoting between roles of party leader and national public opinion leader, the President may no longer have that option. Relatedly, political attitudes may be becoming more entrenched, particularly given that individuals can self-select the information that supports existing beliefs and can resist updating their beliefs with new information. Finally, this project will discuss the implications of this recent phenomenon on the Presidency, on political parties, and on deliberative democracy as well as possible remedies. There is inherent value in robust, informed debate between the public and our elected officials; a trend toward selective exposure and biased partisan reasoning is a potential hazard to any attempt to cultivate a genuine, deliberative democracy.